Biochemical Studies of Bioluminescence

Dr. Tsuji has been carrying out his research at Scripps for the past ten or so years and has now officially moved his grant. He, until recently was a part-time VA employee attached to the University of Southern California, which had been administering his grant. He is now on official leave at the Osaka Bioscience Institute. He will be returning at intervals. As it is the bioluminescent work will continue at both places.